Piezo- and Ferro- Electricity of One Dimensional Nanomaterials

Abstract for "Piezo- and Ferro- electricity in 1-D nanomaterials" (CMS 0324643):

The project is aimed to achieve fundamental understanding of the piezoelectric and ferroelectric effects at low dimension for the purpose of developing novel nanoscale devices critical for nanoscale electromechanical systems. The subject, which has not been extensively studied yet, is critically related to the further advance of nanoscale science and technology. Efforts are made: (1) to develop experimental capabilities for the study of piezoelectricity and ferroelectricity at the nanoscale; (2) to demonstrate and verify the piezoelectricity of BN and BaTiO3 nanowires; (3) to study the dependence of the piezoelectric and/or ferroelectric effects on size, shape and external load; and (4) to prototype and characterize nanoscale sensors and actuators integrating BN and/or BaTiO3 nanowires. The study is accomplished with the aid of multi-probe free-space nanomanipulation and characterization capabilities integrated with real-time visualization and nanoscale materials processing inside electron microscope. The research will not only expand our scientific knowledge on low dimensional piezoelectricity and ferroelectricity, but also achieve engineering breakthroughs on nanoscale characterization, actuation and sensing for nanotechnology. It includes also a comprehensive plan for integrating and educating students, and promoting the public engagement in new scientific research.